Engineering Research Equipment Grant: Preparative Liquid Chromatographic System

This research concerns phase-equilibrium properites of natural-product mixtures (such as vegetable oils and other agricultural products) as required for process design to manufacture-refined foods (e.g., cocoa butter), speciality chemicals, and pharmaceuticals. To study these properties, it is necessary to separate the agricultural product into fractions according to molecular type and size. A preparative liquid chromatograph is required to obtain such fractions in sufficient quantities for subsequent experimental studies using liquid chromatography and other analytical instruments for measuring thermodynamnic phase equilibrium properties. These properties are needed for process development in a variety of natural-products industries, including biotechnology process innovation.